The Theory of Dynamic Games and Robust Controller Designs

9220632 Basar This proposal describes a two-year research collaboration between the Coordinated Science Laboratory of the University of Illinois at Urbana-Champaign (UIUC) and the Sophia-Antipolis Center of INRIA (FRANCE), within the scope of an already existing initiative between NSF and INRIA. The principal investigator who is a Professor of Electrical and Computer Engineering, and at INRIA his counterpart will be the Director of the Sophia-Antipolis Center. Two research teams (comprised of Ph.D. students and post-doctoral fellows) led by these two investigators in the two countries will collaborate on research projects with the common theme of dynamic game theory, with applications in robust controller designs. ***